Computation and Analysis of Reduced-Order Models for Distributed Parameter Systems

The investigators study reduced-order models for distributed parameter
systems with an emphasis on complex fluid flows. They seek flow-adapted
reduced-order bases and methods that synthesize energy-based developments
in turbulence modeling with approaches that exploit approximate inertial
manifolds. Their aim is to overcome limitations of linear model reduction
methods that don't accurately model the transfer of energy among time and
length scales. An important part of this study is the development of
efficient algorithms to compute reduced-order bases that respect the
distributed data synonymous with the simulation of complex fluid flows.
Many of the techniques they study can be extended to larger classes of
dissipative systems.

Reduced-order modeling is required when either predictions need to be
made in a timely manner, such as in weather forecasting, or when multiple
high fidelity simulations are not practical, such as in product or
manufacturing design. By incorporating better energy transfer among
scales and utilizing the structure of the underlying mathematical model,
this study aims to build better predictions and extend the range over
which these reduced-order models are useful. Improved models for complex
fluids would, for example, lead to better forecasting and climate
predictions, better estimates of the spread of pollutants, and more
integration of reduced-order modeling in the design of molds for die-casting.
The investigators also have a plan for training undergraduate and graduate
students in techniques of reduced-order modeling.